Multilinear Operators, Discrete Decompositions, and Spectral Resolution of Nanostructures

ABSTRACT:

The research to be conducted includes the analysis of operators associated with
multilinear singular integrals and the study of discrete functions spaces. The
investigations will be based on techniques related to Littlewood-Paley theory,
molecular decompositions, and time-frequency analysis tools. Specific aspects
proposed in the analysis of operators are to continue collaborations in the
development of a multilinear counterpart of the linear Calderon-Zygmund
theory, and to study various classes of multilinear pseudodifferential
operators. Problems in the analysis of discrete function spaces include issues
about the sampling of functions with controlled mean oscillations and the
approximation of band limited signals. The proposal also contains an
interdisciplinary component. In particular, theoretical problems arising in the
analytic formulation of the scattering of light by structurally colored tissues
of living organisms will be considered. The spectral resolution and
mathematical properties of quasi-ordered geometries will be investigated. The
last part of the research will be assisted by numerical computation and data
visualization.

Operators associated with singular integrals arise as technical tools in
analysis and also as transformations encountered in the mathematical modeling of
certain physical phenomena. Such transformations can be used to describe the
changes in the properties of a function or the transition from the input to the
output of a system. Properties of functions or signals often need to be
understood from the information encoded in samples of the data. Such
information can be quantified by function spaces and decoded by Fourier analysis
and related time-frequency techniques. Fourier analysis is the mathematical
version of a diffracting physical prism. It resolves a signal into a spectrum
of waves of different amplitudes and oscillations in a similar way that a prism
diffracts a ray of light into a rainbow of colors of different wavelengths.
Modern decomposition techniques in analysis provide a universal language for the
processing of complicated information. Progress in this area of analysis always
produces important advances in scientific problems where large and complicated
sets of data need to be analyzed to search for ordered patterns, reduce
unnecessary information, or visualize intricate structures.